Collaborative Research: Molecular Studies on the Biogenesisof Polyhydroxybutyrate and Related Polyesters

Polyhydroxbuytyrate (PHB) can be produced by many bacteria by fermentation and can be easily obtained in quantity. It would be an excellent thermoplastic; it lacks toxicity and is biodegradable. However it is too crystalline and brittle which has hindered its commercial potential. It is, however, possible that these PHB biosynthetic enzymes could be used to make alternate polyester materials with improved properties. Thus it is planned to dissect the important and fundamental mechanism of how this class of biological molecules are assembled. It will be necessary to clone (or move) the three genes in the biosynthetic pathway. The genes will be sequenced, appropriate vectors will be constructed and the resulting three enzymes, thiolase, acetoacetyl CoA reductase and PHB synthase, will be purified to homogeneity. The regulation of the three genes will be studied and each purified enzyme characterized structurally and functionally. The ultimate objective is to shed light on the unexplored mechanisms of biological polyester formation of PHB analogues. This is an ideal team to conduct this investigations. Dr. Masamune, a physical organic chemist, Dr. Walsh, as skilled bioorganic chemist, and Dr. Sinsky an applied microbiologist. Support is recommended with a high priority.